Electronic Scientific Communities: A Challenge for STS

9320278 Star Scientific communities (and indeed the very ideal of a scientific community) are undergoing significant changes as a result of rapidly changing electronic infrastructures. These include specialized electronic support for scientific collaboration, the explosive growth of the Internet, very large databases, and increasingly common long-distance collaborations using such tools. There are serious difficulties for STS researchers in understanding practice and social change in these geographically dispersed workplaces and professional communities. It is impossible to gain access to the work using traditional ethnographic or survey tools. In part this is due to the need to acquire significant information systems/advanced user skills, something which can be difficult to do in a social science department. It is also due to conceptual and methodological challenges as the very nature of work shifts. In order to address these problems, Dr. Star is undertaking professional development training in order to increase her skills in information systems and electronic network usage while conducting research on two scientific communities. The purpose of the training is severalfold: to deepen ongoing collaborations with information and computer scientists; to help better understand the activities of her respondent scientists who use these systems' and to hep develop methods for studying large electronic systems such as Internet. The research will develop tools and concepts for understanding the impact and nature of electronically-supported scientific work. Dr. Star will be based at the Community Systems Laboratory and the National Center for Supercomputing Applications (NCSA). There she will continue research on a community of biologists who are sequencing the genetic structure of the nematode worm. This community has developed a large digital library (WCS). Dr. Star has been collaborating with this team since 1991 as an ethnographer in aid of system devel opment. She is also working with a second community of scientists developing a large database describing the results of autopsies of patients with severe dementia. She will also acquire skills in Unix programming, Internet use, information retrieval and database programming through taking classes and on- the-job training as a team member of the Software Development Group at NCSA. Her research focus extends and makes more rigorous three concepts she has developed: boundary objects, invisible work and distributed problem solving. Using these concepts, she is analyzing how scientific work is being conducted electronically (as well as off-line), in the two communities. At a higher level, she is interested in how these large-scale infrastructural changes occurring in science are impacting both the structure and processes of scientific communities. ***